Mathematical Sciences: Summer Research Program for Mathematics Undergraduates

This REU site award provides support for eight undergraduate researchers in mathematics working under the supervision of several faculty advisors. Areas of possible research include dynamical systems, stochastic processes, and combinatorics. The program will run for eight weeks. Students will participate in two seminar series and will each give a presentation. At the end of the program, the students will prepare their work for inclusion in a proceedings and for possible publication.